Integrable systems, the Whitham equations and conformal maps

Abstract for DMS - 0104621

The algebraic-geometric theory of soliton equations developed in the middle
seventies has become one of the most powerful tools in the theory of integrable
models, and has had enormous influence on many branches of mathematics and
theoretical physics. The main objective of the present project
is a further development of this approach to integration of non-linear
equations, models of solid state physics, and models of quantum field theories.
An immediate goal is to construct integrable models corresponding
to various supersymmetric gauge Seiber-Witten models,
which can be instrumental in investigating key physical issues such as
duality, the renormalization group, or instanton corrections.
Another goal of the project is a classification of commuting difference
operators. Particular attention will be paid to connection of this
theory with the Hitchin system which is central in modern theory of
the moduli space of vector bundles over algebraic curve.

Recent progress in understanding non-perturbative structures in
supersymmetric gauge theories has shed new insight upon the role of
integrable structures in modern theoretical physics.
The nineteenth century saw many aspects of geometry and analysis,
particularly the development of Abelian functions, drawn together in
the study of integrable systems. The works of Jacobi, Abel, Riemann
and Weierstrass enabled a number of important integrable
problems of mechanics and physics to be solved. The modern discovery of
soliton theory has led to a renewed interest to the theory of integrable
systems. Nonlinear phenomena could now be treated, and the ever-growing
interest in this theory is connected with the fact that it is applicable to
equations which possess a remarkable universality property. They arise in the
description of the most diverse phenomena in plasma physics, the theory of
elementary particles, the theory of superconductivity and in nonlinear optics.
Geometry and algebraic geometry, functional equations and special functions,
Lie algebras and groups all come together in their study. This ubiquity of
integrable systems together with the beautiful structures that underly them
has been confirmed recently by discovery of unexpected relations between the
Whitham perturbation theory of soliton equations developed in earlier works
of the author and the Riemann mapping theorem. It seems urgent to develop
methods which can identify various Whitham hierarchies with conformal maps
for more general types of domains. A range of possible applications
include flows in porous media, fundamental theory of pattern formation.